Comparing the Efficacy of Collaborative Professional Development Formats for Improving Student Outcomes of a Student-Teacher-Scientist Partnership Program

Science classrooms in the U.S. today increasingly expect students to engage in the practices of science in a way that help them form a deeper understanding of disciplinary core ideas and the practices by which science is done. To do this, students should learn how scientists work and communicate. It also calls for changes in how teachers teach science, which in turn creates a need for high-quality professional development so they can be more effective in the classroom. Professional scientists can also benefit from training preparing them to support teachers, motivate students, and model for students how scientists think and work. Preparing teachers and scientists through collaborative professional development can help maximize the impact they can have on student outcomes. To have the broadest impact, such professional development should be cost-effective and available to teachers in rural or underserved areas. This project focuses on high school life science (biology) teachers and their students. It will make use of an online mentoring platform, a student-teacher-scientist partnership program established in 2005. That study found that implementing in combination with high-quality, in-person collaborative teacher/scientist professional development resulted in positive and statistically significant effects on student achievement and attitudes versus business-as-usual methods of teaching the same science content. This project has two main components: 1) a replication study to determine if findings of the previous successful study hold true; and 2) adding an online format for delivering collaborative professional development to teachers and scientists enabling one to compare the effectiveness of online professional development and in-person professional development delivery formats for improving student outcomes.

The goal of this project is to study how the integration of an online curriculum, scientist mentoring of students, and professional development for both teachers and scientist mentors can improve student outcomes. In this project, teachers and scientist mentors will engage collaboratively in a professional development module which focuses on photosynthesis and cellular respiration and is an example of a student-teacher-scientist partnership. Teachers will use their training to teach the curriculum to their students with students receiving mentoring from the scientists through an online platform. Evaluation will examine whether this curriculum, professional development, and mentoring by scientists will improve student achievement on science content and attitudes toward scientists. The project will use mixed-methods approaches to explore potential factors underlying efficacy differences between in-person and online professional development. An important component of this project is comparing in-person professional development to an online delivery of professional development, which can be more cost-effective and accessible by teachers, especially those in rural and underserved areas.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering, and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed